EXPLORATIONS: An Exhibition About the Discovery of Our World and of Worlds Beyond

9627196 LaBar Explorations is an 8,200 sq. ft. permanent exhibition containing about 70 educational components that will stimulate interest in and understanding of the ways that science and technology are extending the ability to examine and understand the Earth, its oceans and the universe. The exhibit design gives equal priority to science content and learning via high-tech device components, interweaving experiences to help the public understand cutting edge technologies, the scientific principles behind them, and how technology is used to advance scientific knowledge. To ensure accessibility to the Hispanic community, graphics and multimedia programs will be presented in English and Spanish. Strategies for addressing the language needs of other non-English speaking visitors are employed. It is expected that the engineering designs and solutions developed for these exhibits will advance the informal science learning profession buy contributing significantly to one of the top challenges faced by science museum exhibit designers today - the interpretation of advanced technological tools and capabilities to a broad museum public with diverse technical literacy skills.